Workshop on Thermal Plasma Systems and Engineering, August 17 to 20, l986, New Hampshire

This workshop seeks to determine research needs in plasma applications, establish the relevance of current research to those needs, and to identify plasma research which has a high probability of enhancing plasma system applications. The workshop will set the stage for the major thrusts in plasma system applications for the remainder of the decade.